Analysis of Myelin by Fourier Transform Infrared Microscopy

Myelin is a compact, multilammellar structure that insulates the axons of nerve cells and promotes the rapid conduction of nerve impulses. This project is designed to test the application of Fourier Transform Infrared (FTIR) microscopy to examine myelin. Due to its simple protein composition, and compact nature, myelin is an ideal substance for analysis by FTIR microscopy. The method will enable Dr. LeVine to resolve the infrared spectra of minute amounts of material. This analysis entails utilizing FTIR microscopy to distinguish the in situ, infrared spectrum of myelin from normal animals, and myelin from animals with genetic mutations which affect myelin. In addition, Dr. LeVine will study the infrared spectrum of myelin during different stages of development. The infrared spectrum of this substance will reveal chemical differences that exist between the two forms of myelin and prompt the identification of these differences. If successful, this technology could be a new frontier in the neurosciences, opening a new field of exploration.